Mathematical Sciences: PDE and Several Complex Variables

9401756 McNeal This award supports mathematical research on problems arising in the study of the relationship between the geometry of domains in complex n-dimensional space and analytic quantities associated with these domains - such as the Bergman and Szego kernels and peak functions. Three particular problems will be addressed in this project. The first concerns the boundary behavior of the Bergman kernel function and its derivatives on smoothly bounded, pseudoconvex domains. The second involves estimates of the Holder norm of solutions to the Cauchy-Riemann equations on smoothly bounded convex domains and the third relates to the mapping properties of the Szego projection operator on various Banach spaces. The methods employed will center on the relationship between regularity for solutions to certain systems of partial differential equations and the geometry of the boundary of the domain in question. Several complex variables arose at the beginning of the century as a natural outgrowth of studies of functions of one complex variable. It became clear early on that the theory differed widely from it predecessor. The underlying geometry was far more difficult to grasp and the function theory had far more affinity with partial differential operators of first order. It thus grew as a hybrid subject combining deep characteristics of differential geometry and differential equations. Many of the fundamental structures were defined in the last three decades. Current studies still concentrate on understanding these basic mathematical forms. ***